Genetic Algorithm Devleopment for Multi-Objective Optimization of Seismic Mixed-Constructued Structures With/ Without Control of Systems

9520804 Cheng This project deals with a fundamental problem which often arises in intelligent engineering aimed at optimum design of buildings and civil infrastructure systems where multiple variables and loading conditions are involved. Optimum design means, among other things, to maximize service life, safety and functionality while minimizing material use, labor, maintenance,etc. A critical step and requirement in the process of multi-objective optimal design is a computational algorithm which could give consistent, stable solutions to the complex optimization formulation. In this project, an innovative optimization technique, namely, a genetic algorithm will be developed for civil structural applications under seismic condition. This algorithm is based on the Darwinian survival-of-the-fittest strategy by eliminating unfit characteristics and using random exchange through reproduction, recombination (cross over), and mutation. Emphasis is placed on formulation of n-parent uniform cross- over operator and parallelization to achieve an emerging computing technique for both global and robust optimum solutions. Other research efforts also undertaken as a part of this research include structural modeling of building systems with mixed construction materials, formulation of multi- objective functions and constraints for building structures, development od optimum based design criteria for static and earthquake load with/without control systems, and assessment and improvement of current optimum design algorithms. ***